DDDAS-TMRP: Dynamic, Simulation-Based Management of Surface Transportation Systems

This project will address research challenges concerning the effective realization of dynamic data driven application simulations (DDDAS) used for the management of surface transportation systems. Middleware research will address challenges associated with dynamically adapting the computing and communication infrastructure to disseminate and propagate data and computations to meet quality of service requirements. Research in data cleaning and imputation will use statistical techniques to address issues such as gaps and errors that will arise in real-time data feeds. Modeling research will focus on agent-based, dynamic data driven simulation models of transportation networks that adapt to real-time data feeds to predict future states of the system, and modeling of plume cloud dispersions that when integrated with transportation simulations, allow evaluation of the DDDAS approach in important
emergency scenarios. Finally, a paradigm termed ad hoc distributed simulations will be explored that features dynamic collections of autonomous simulations interacting with each other and real-time data in a continuously running real-time distributed simulation environment. Experimental research will be conducted by deploying a prototype system on instrumented vehicles, wireless enabled roadside computers, and high performance compute servers.